The Art of Microwave Design for Undergraduates

An integrated microwave circuit design and measurement package for teaching modern microwave engineering to undergraduates is being developed. The package is controlled by a computer allowing automated measurements. A network analyzer provides magnitude and phase responses of microwave devices and circuits, while a spectrum analyzer provides frequency domain characterization of signals emanating from circuits. All measured data is collected and stored by the computer and is available for analysis and design under the direction of a CAD/CAM software package. This project provides undergraduate students with powerful tools for the complete cycle of design, fabrication, and measurement of microwave circuits. This project is being matched by an amount equal to the award.